CAREER: Topological Methods in Applied Mathematics

DMS-0134408
Robert W. Ghrist

The efficacy of topological methods in contemporary applied
mathematics is primarily attributable to the fact that topological
features of a system are inherently robust and global. This
project focuses on a technology transfer from contemporary ideas
in topology, geometry, and dynamics to bear upon application
domains which include the following: First, Robotics: tools
from configuration space theory, CAT(0)complexes, and
computational topology will be directed toward specific
problems in reconfigurable robotics, sensor-based navigation
of mobile agents, and self-assembly systems. Second, Parabolic
coupled systems: a Morse-theoretic homotopy index for braids
will be used to solve parabolic variational problems arising in pattern-formation PDE's, discrete Lagrangian mechanics, and
coupled oscillators. A Floer-theoretic extension of the braid
index will also be developed for infinite dimensional systems.
Third, Hydrodynamics: tools from contact geometry and topology
will be directed toward solving global problems of the dynamics
and stability of Eulerian fluid flows in dimensions higher
than two.

In most systems of interest in science and engineering,
multiple cooperative tasks must be globally coordinated.
A common thread is that whether the tasks involve
macro-scale robots, micro-scale devices, coupled oscillators,
or fluid particles, there is an abstract space of configurations
lurking behind the physical phenomena. Unearthing and
examining those properties of physically-motivated
configuration spaces which capture the global features, the
topology, geometry, and dynamics, holds the promise of
providing global tools which transcend the physical
instantiation of the system at hand: ostensibly different
systems possess similar topological underpinnings.
The research component of this project is the development
of contemporary topological and global-geometric techniques
for analyzing the dynamics and coordination of systems of
interest in engineering and computer science. The overall
goal is an effective technology transfer from cutting-edge
perspectives in topology to bear upon systems in application
domains which include robotics, mechanics, and fluid dynamics.
This is combined with a blend of pedagogical service across
graduate, undergraduate, and high school levels, featuring
a focused research group on topological robotics and a
high-school outreach program of expository lectures on the
relevance and joy of mathematical research.